Postdoctoral Research Fellowship in Biological Informatics for FY 1999

This action funds an NSF Research Postdoctoral Research Fellowship in Biological Informatics for 1999.

The research and training plan is in the area of population biology and is entitled "Bioinformatic analysis of the effects of genetic and spatial diversity on the survival and variability of host-symbiont systems." Different degrees of genetic and spatial heterogeneity, in relation to interspecific selection and comigration, will affect the spatial and temporal distribution of host species and their symbionts. This bioinformatic study analyzes how these dynamical processes increase, or decrease, the persistence of metapopulations and local populations of the two interacting species.